Mathematical Sciences: Beam Propogation Methods

9203842 Glasner Propagation methods for the Schrodinger equation in quantum mechanics, the Fresnel equation in guided-wave optics or the paraxial equation in acoustics have been based on the approximation of the exponential of the sum of two non-commuting operators. Recently a number of researchers have introduced a variety of high order splittings of the exponential into products of exponentials, leading to high order FFT based methods. The investigator and collaborators have established that the exponentials can be replaced by Pade approximants yielding finite-difference or finite-element methods and also that high order splittings are possible in the time-dependent case. The first part of this proposal is to extend the applicability of these methods. The investigator and collaborators have introduced Lanczos reduction techniques for approximating the reflection coefficient associated with the planar interface of two inhomogeneous refractive index media. The second part of this proposal is to develop accurate and rapid high order wide-angle approximations to the Helmholtz equation base on Lanczos reduction, making it feasible to model highly divergent beams in components such as reflectors and microprisms. The investigator is also examining the possibility of using propagation techniques to accurately generate soliton solutions to a variety of nonlinear Schrodinger equations. The investigator has, in collaboration with electrical engineers, developed techniques for mathematically modeling the propagation of light through electro-optical devices, such as waveguides, filters, gratings, corner reflectors, switches and modulators. The ability to use computers to simulate light passing through devices reduces the time and cost involved in designing new devices by cutting the number of actual physical models that are needed in the process. The results of these collaborations are already in use at a variety of research and development centers, inclu ding Hughes Aircraft, Corning Glass, AMOCO Technology Center, Bell Northern Research, NIST. The range of applicability of the modeling techniques and their efficiency must keep pace with the constant introduction of new materials and the down-sizing of components. It is anticipated that the proposed research will provide some of these improved modeling techniques and thereby will have an economic and strategic impact on technologies based on these devices, including optical communications. The research should also affect other fields that deal with wave phenomena, for example acoustics, seismology, quantum chemistry and physics. ***